Teacher Research Curriculum Partnerships Program

This proposal provides a plan for enhancing the scientific skills of middle school and secondary school teachers by combining field research experiences for teachers with a collaborative, professionally-guided approach to the development, evaluation, and assessment of curriculum based on the teachers' own research experience. Eighty teachers will participate in project activities. The curriculum will stress scientific process skills, participatory learning, classroom research activities, and an interdisciplinary approach to scientific issues. Cost sharing is equivalent to 27% of the NSF award.